Stellar Dynamics in Galaxies and Galaxy Clusters

A variety of stellar dynamical problems which bear on cosmology will be investigated. A maximum entropy - orbit based galaxy modelling technique will be used to redetermine mass to light ratios (M/L's) in elliptical galaxies. Methods will be developed to attempt to resolve whether the velocity dispersion tensor in ellipticals becomes more tangential with increasing radius, or whether the ellipticals have massive halos. The dynamics of stellar systems with twisted isophotes will be explored considering the (neglected) possibility that there are real internal misalignments of different components. The dynamical consequences of the recent results indicating very large M/L's in galactic nuclei will be studied. Previous work on the formation of clusters will be extended to different cosmologies by treating the dark matter separately from the galaxies. The purpose of these numerical simulations will be to explore the separation of dark matter from luminous matter during cluster formation and evolution, to understand better whether cluster profiles can be used to estimate the mass density of the Universe, to study the formation of disk galaxies and the evolution of galaxy mass and luminosity functions, and to attempt to understand whether subclustering can be used as a cosmological probe.